SBIR Phase II: Thin Silicon Solar Cells for Aerospace Applications

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is in providing a novel, low-cost, scalable, and optimized-for-use-in-space solar panel technology based on ultrathin silicon solar cells. The developed space solar panels may have substantially lower cost compared to the state-of-practice space solar panels and will be compatible with automated high-volume manufacturing. The panels will meet the requirements of the growing satellite manufacturing industry. The main customers include manufacturers of satellites for large scale satellite constellations and manufacturers of large-size spacecraft, as well as space agencies and private companies developing infrastructure for space, Moon and Mars exploration. Applications on Earth could include powering long-endurance drones (airplanes and airships) and remote facilities that need more compact and lighter weight solar solutions for off-grid power systems.

This Small Business Innovation Research (SBIR) Phase II project will develop novel space-stable and scalable packaging technologies for ultrathin silicon solar cells. The project will develop a prototype solar blanket and demonstrate its integration into ultracompact solar array deployment systems. Specific objectives of this Phase II project are to: (1) establish routine production of ultrathin silicon solar cells, (2) develop low-stress metal interconnects for thin silicon solar cells, (3) develop a cover glass replacement coating for thin silicon solar cells, (4) demonstrate mini-blankets with acceptable cell-to-module efficiency loss, (5) electrically and mechanically integrate silicon solar blanket, and (6) demonstrate deployment of the relevant size blanket while conducting preliminary stress testing.